Radar and Fluid Theory Investigation of E Region Irregularities

This proposal will investigate meter scale plasma density irregularities associated with turbulence in the lower ionosphere. The majority of the work will involve VHF coherent radar experiments, including operational and data analysis of a novel radar under development. The project will improve the understanding of ionospheric turbulence, by developing a fluid theory, potentially into a nonlinear regime.